WORKSHOP: Doctoral Consortium for the International Conference on Multimodal Interaction (ICMI 2013)

This is funding to support participation by about 6 graduate students from U.S. institutions, along with 5-6 senior members of the ICMI community (faculty and industry researchers, who will receive partial support only), in a Doctoral Consortium (workshop) to be held in conjunction with and immediately preceding the 15th International Conference on Multimodal Interaction (ICMI 2013), which will take place December 9-13, 2013, in Sydney, Australia, and which is organized by the Association for Computing Machinery (ACM). The ICMI conference series is the premier international forum for multidisciplinary research on multimodal human-human and human-computer interaction, interfaces, and system development. The conference focuses on theoretical and empirical foundations, component technologies, and combined multimodal processing techniques that define the field of multimodal interaction analysis, interface design, and system development. Topics of special interest to the conference this year include multimodal interaction processing, interactive systems and applications, modeling human communication patterns, and data, evaluation and standards for multimodal interactive systems. ICMI 2013 will feature a single-track main conference which includes: keynote speakers, technical full and short papers (including oral and poster presentations), special sessions, demonstrations, exhibits and doctoral spotlight papers. The ICMI 2013 proceedings will be published by ACM The ICMI proceedings will be published by ACM Press and included in the ACM Digital Library. As a further incentive for high-quality student participation ICMI will be awarding outstanding paper awards, with a special category for student papers. More information about the conference may be found online at http://www.acm.org/icmi/2013.

The goal of the ICMI Doctoral Consortium is to provide PhD students with an opportunity to present their work to a group of mentors and peers from a diverse set of academic and industrial institutions, to receive feedback on their doctoral research plan and progress, and to build a cohort of young researchers interested in designing multimodal interfaces. Student participants will present their ongoing thesis research as a short talk at the Consortium and also as a poster at the conference Doctoral Spotlight Session. This year, the organizers seek to expand the scope of the Doctoral Consortium to provide more opportunities for interaction between the students and senior members of the field; to this end, the program will also include a lunch on the day of the workshop for students and mentors, a career panel that will provide the students and mentors the opportunity to ask and answer questions and discuss challenges and opportunities in the field, and a dinner that will provide the students with the opportunity to hold informal conversations among themselves as well as with the organizers and mentors.

Broader Impacts: The Doctoral Consortium will give student participants exposure to their new research community, both by presenting their own work and by observing and interacting with established professionals in the field. It will encourage students at this critical time in their careers to begin building a social support network of peers and mentors. The organizers will take steps proactively to achieve a diversity of research topics, disciplinary backgrounds, methodological approaches, and home institutions among the students. Priority will be given first to minority students, female students, students from geographically underrepresented states, and finally to students whose advisors or departments have insufficient funds to support their participation in the conference. To further increase diversity no more than two students will be invited from any given U.S. institution of higher learning.